Workshop on Community Finite Element Models for Fault Systems and Tectonic Studies

EarthScope and associated activities will provide a wealth of data
from a wide range of disciplines about how Earth.s crust deforms on a wide range of
spatial and temporal scales. Interpreting these data in terms of the underlying processes
requires model-based inference. In order to gain better understanding of earth processes,
as well as to address adequately the high quality data that are increasingly becoming
available from geodesy, paleoseismology, stress measurements, and seismology, it is
crucial that substantial effort be devoted to improving our models. While in the short
term (important for siting of instruments, and guiding development of more sophisticated
approaches), we can make significant progress with relatively simple models; ultimately
a large-scale computational effort is needed in order to do justice to the data. We plan a
three-day workshop at Los Alamos, Aug. 16-19, 2004, with formal discussion periods, but
also with significant time to conduct hands-on work. The main objective will be to address the issues relating to meshing complex geologic problems. This workshop is open to all interested members of the EarthScope modeling community; by holding it at LANL, we can take advantage of local expertise in meshing and solving large FEM problems.